Deterministic and Stochastic Dynamics of Some Geophysical Systems

Duan
9973204
The investigator studies complex geophysical flow phenomena
modeled by finite or infinite-dimensional deterministic or
stochastic differential equations. The research focuses on
transport and mixing in random geophysical flows, nonlocal
transport in geophysical flows, variational methods for
geophysical models, and stochastic geophysical flow modeling. In
the area of transport and mixing, the investigator quantifies
fluid transport and mixing in geophysical flows by computing
escape probability and mean resident time. The work on nonlocal
transport studies the mean advective and eddy transport of
passive tracers or pollutants in geophysical flows, when the eddy
diffusivity depends on time and space. For the research on
variational methods for geophysical models, the investigator
gains better understanding of the rotating shallow water
dynamics, by studying steady patterns, spatial and temporal
periodic patterns and homoclinic motions via emerging techniques
in calculus of variations. Finally, he derives a simplified
coupled atmosphere-ocean model by averaging over random wind
forcing and over intrinsic fast waves, quantifies the
approximation error of the averaged dynamics, and studies some
aspects of the coupled atmosphere-ocean system using this
averaged model.
The geophysical flows in the oceans and the atmosphere
affect our environment and our society in profound ways. This
project is motivated by the need of better scientific
understanding of the environment and global change. The
investigator takes random or uncertain effects into account to
describe geophysical flows. He develops both deterministic and
stochastic, numerical and analytical techniques to understand
complex geophysical flow phenomena. This research improves our
knowledge about dispersion, transport and mixing of pollutants in
our environment, and about evolution and pattern formation of
geophysical flows. The techniques resulting from this research
are also useful in studying other emerging problems in
engineering and applied sciences.